ADVANCE Leadership Award: Big Sky Leadership Initiative to Advance Women Into Careers in Research Leadership

The Big Sky Leadership Initiative (BSLI) will advance women as research leaders via a
sustainable, tiered and cascading system of mentoring and professional development. The
BSLI draws on Montana State University's existing strengths, its prominent interdisciplinary
research centers and crosscutting programs, its well-positioned senior women faculty in sciences
and engineering, to develop an innovative system for mentoring women scientists, social
scientists and engineers at different career stages and transition points. Each track of the BSLI has
specific goals and contributes to a systemic and sustainable program. Senior women will enter
into formal mentoring relationships with research leaders at outside institutions who have
extensive experience developing and maintaining complex research centers. In turn, this network
of senior women will mentor early-to-mid-career women faculty, providing them opportunities to
develop their research and introducing them to the organizational structures through which
interdisciplinary research is accomplished. BSLI also includes an integrated series of four two-day, intensive leadership development workshops on a variety of topics of importance to scientists and engineers. Formative and summative evaluation and dissemination of the program results are included.